A Proposal for a Study of Models Available to Stimulate Contaminant Transport and Environmental Fate in Ground Waterand Their Application in Regulatory Decision Making

During the past few years, considerable national attention has focussed on problems of ground water contamination. The purpose of this project is to study of the methodologies available for simulating the transport and environmental fate of contaminants in ground water. The study will be conducted by a committee of approximately 10 experts. The report is envisioned to be a constructive contribution to the literature, forming the blueprint for research and development of future models. This is a multi-agency project. NSF participation is to generate new knowledge in the area of contaminated ground water modelling.